XPS: FULL: CCA: Collaborative Research: CASH: Cost-aware Adaptation of Software and Hardware

Programming for and leveraging the benefits of scalable and highly
parallel computer architectures is becoming increasingly
challenging. In order to ease programmer and user effort in achieving
efficient use of parallel architectures and to enable optimal usage of
parallel hardware both within a single chip and across a data center,
this project explores the co-design of a fine-grain configurable (down
to the ALU, FPU, Cache bank, fetch unit, etc) architecture along with
a software optimizing runtime system which controls the architecture's
configuration. This runtime management system understands high-level
goals and constraints such as optimizing for power, latency, cost, or
complex mixed-goals and dynamically allocates fine-grain resources to
meet the constraints. This project will evaluate and design a configurable
manycore-inspired architecture and a self-adapting runtime system.

This project will investigate the creation of a complete, scalable,
self-adaptive computing system; and will push the boundaries of
adapting systems by utilizing hardware that is configurable and
monitorable below the processor core level. By providing such a
flexible and highly monitored architecture to the adaptation runtime,
this project will explore the scalability of adaptive runtime
algorithms to handle a game-changing increase in the number of
controllable parameters. This project will explore the extent to
which it is fruitful to configure a parallel architecture.